EAGER: Discrete Algorithms in NLP

Algorithms that can understand human language must be able to recognize the underlying structure (e.g., subject-verb-object) of that language. Computational approaches developed in the natural language processing community typically have build ad hoc, one-off algorithms for solving the hard, combinatorial optimization problems that arise in such tasks. Most large-scale systems are built using complex combinations of heuristics applied to try to make approximate search techniques better. Concurrently, the algorithms community has developed scalable exact algorithms and approximation algorithms for solving many of these hard combinatorial optimization problems. This EArly Grant for Exploratory Research investigates the connection between these two extremes: the language processing community with the hard problems they need solved, and the algorithms community with the provably correct algorithms for solving such hard problems. The biggest technical challenge this exploration addresses is how to couple the statistical learning algorithms necessary to build effective language applications with the types of abstractions that make efficient algorithms possible. In particular, this project explores the application of "inverse optimization" to machine learning. For example, if one has access to an efficient algorithm for solving a particular discrete optimization problem, how can one learn parameters that make that particular algorithm as high accuracy as possible? Success in this project will give rise to theoretically principled, efficient algorithms for learning to solve complex linguistic tasks, which can transform to downstream applications like machine translation, automatic question answering and information retrieval.

This project's main technical innovation is the coupling of "inverse optimization" problems with online learning techniques. For instance, suppose that the end goal is to find some particular structure. The search for this structure can often be cast as a particular form of dynamic programming problem, which in turn often becomes a shortest path problem in a hypergraph. The machine learning challenge then is to learn a model under which the solution to this shortest path search is actually the desired structure. From an algorithmic perspective, this requires finding a set of inputs under which a given structure is optimal: inverse optimization. However, it is not enough for a given structure to be optimal: it must also beat all other (non-optimal) structures by some given margin. This project will develop a combination of online learning algorithms and inverse optimization formulations that enable such advances.